Transnationalism and the Salvadoran Migrant Community of New York

The research analyzes the demographic and geographic structure, network dynamics, and material conditions of the transnational migrant community of Salvadorans in New York. The project utilizes retrospective longitudinal data and methods to more fully understand the recent international migration of Salvadorans. The study will be based upon data gathered in New York and El Salvador. The research addresses the vital questions of forces that shape migration under contemporary conditions of economic, geopolitical and cultural change. The work will advance our knowledge of migration theory and especially add to the literature on international migration. The research is also designed to provide a unique perspective on migration from both origin and destination perspectives. Methodologies include interviews, focus groups and statistical analyses.